High Field NMR Relaxation Studies of Molecular Structure and Dynamics in Solution

Professor Farrar is supported by a grant from The Physical Chemistry Program to develop new methods for the determination of molecular structure in solution using NMR spectroscopy. The structures of several small molecules of chemical interest will be studied as a function of solvent, pH and temperature. Professor Farrar has shown for the first time that it is possible to measure chemical shift tensors in solution. Previously this was only possible for molecules in the solid state. Furthermore, he has developed techniques for simultaneously obtaining bond lengths, chemical shift anisotropy (CSA) values, and molecular correlation times for two spin systems in solution. Data of this type provide an important data base with which to test various ab initio theories for the calculation of chemical shift tensors.